Mathematical Sciences: Gordon Research Conference on Statistics in Chemistry and Chemical Engineering

Statistical methodology provides important quantitative tools in numerous areas of research including meeting national goals for improved quality and productivity, the evaluation of environmental hazards and technological progress coming from research in chemistry and chemical engineering. This conference will involve leading statisticians, chemists and chemical engineers from industry, government and universities to examine the ways in which the most meaningful data can be obtained and transformed into useful information for research and new developments in chemistry and chemical engineering. Important problems of high priority in these areas will be presented to research statisticians; and in their turn, applied chemists and statisticians can learn firsthand about new statistical research results to apply in their work. Together these groups may formulate priorities for future statistical research directions in this interface.